Postdoctoral Research Fellowship in Plant Biology

9303646 Lee This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from Cornell University and her Ph.D. research was in the molecular genetics of Drosophila. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Teh-hui Kao at Pennsylvania State University. The proposed research entitled "Function of a pollen-specific receptor-like protein kinase of Petunia" will expand this Fellow into plant molecular biology, cell biology, and developmental biology. She plans a short research visit to University of Lyon, France during the Fellowship tenure. ***